Publication of Antarctic Research Series

The Antarctic Research Series, begun in 1963 with the aid of a grant from the National Science Foundation, publishes the results of all phases of antarctic research. Volumes have provided extensive and authoritative reports of research results in marine and terrestrial biology, solid earth geophysics and geochemistry, oceanic and atmospheric studies, and geology. These volumes are designed to serve the entire community of working scientists, students, and laymen interested in biological or physical sciences. Volumes are devoted to a single topic or occasionally a particular geographic area. In soliciting, reviewing, and selecting papers for publication, particular attention is paid to providing an attractive publication outlet for the work done under the U.S. Antarctic Program. To date, 98 volumes (over 11,000 pages, including a special collection of papers in Reviews of Geophysics, have been published. An additional 600 plus pages are currently in press. The series is recognized by the scientific and library communities who look to it to provide continuing access to south polar results. The Board of Associate Editors for the Antarctic Research Series has recently expanded the modes of publication to better meet the needs of the research community.